Re-inventing Schools: The Technology Is Now -- A ConferenceGrant

The National Academy of Sciences convened a national convocation (conference) for May 10-12 entitled Reinventing Schools: The Technology Is Now. This convocation had the intended purpose of focusing national attention on two areas: the impact of information technologies on children and the ways in which schools need to change to remain vital in the lives of children. This meeting was a first step in building public awareness among parents, educators, policy makers, and other stake holders that change is necessary. Participants in the convocation included 700 attendees drawn from students, educators and educational reformers, elected officials, technology experts, business and management experts, and popular personalities such as science fiction writers and explorers. The outcomes of the conference included proceedings and a multimedia CD-ROM which are being distributed to sponsors and others including 5000 educational reform leader, teachers, professional societies, government officials, vendors, businesses, scientists, parents and students. The cost for this convocation is shared by the National Research Council (40%), federal agencies (40%), and computer companies and foundations (20%).